A Celebration of Raoul Bott's Legacy in Mathematics, Montreal, Quebec

Abstract

Award: DMS-0805925
Principal Investigator: P. Robert Kotiuga

This award provides partial support of the conference on the
heritage of Raoul Bott planned for the Centre de Recherche
Mathematique in Montreal, Quebec during June 2008. Topics of
conference presentations include: operator algebraic methods and
K-theory, supersymmetry and quantum field theory, Morse theory,
string topology, pseudoholomorphic curves, Floer homology,
equivariant cohomology and localization, generalized cohomology
theories and physics, and networks; applications and modular
forms.

This conference, cosponsored by the Clay Mathematics Institute,
focuses on the mathematical legacy of Raoul Bott and the
extraordinary impact he had on both topology and interactions
between mathematics, physics and technology. Bott’s students,
coauthors, and intellectual descendents will talk on
forward-looking research topics, addressing a broad audience.
Montreal was chosen as the conference venue because Bott obtained
two degrees in Electrical Engineering at McGill University in the
1940s, an Honorary Doctorate from McGill in 1987 and the Centre
de Recherches Mathematiques (CRM) is the focal point of
mathematics in Montreal where one can find three generations of
mathematicians with close connections to Bott. The week-long
conference features 26 hour long slots for technical talks or
panel discussions. See http://www.crm.math.ca/Bott08 for
details.